Exploring a Low-Energy Frontier of Particle Physics Using Methods of Experimental Gravitation

This award will continue research in experimental gravitation and low-energy elementary particle physics by Professor Adelberger's group. Sensitive searches for new macroscopic interactions will be carried out. The University of Washington team will probe interactions with ranges greater than 3 cm by looking for apparent violations of the weak equivalence principle. They will develop two torsion balance instruments for this purpose: -- a continuously rotating balance used in conjunction with a fixed topographic source. This device will be optimized for interactions with ranges from infinity down to 1m. -- a stationary balance used in conjunction with a continuously rotating 3 ton uranium source optimized for interactions with ranges between 0.03m and 10m. By placing unpolarized test bodies in these instruments they plan a 10-fold improvement in constraints on macroscopic scalar or vector interactions. They will also develop a novel spin-polarized pendulum to search for parity and time-reversal violating monopole-dipole interactions.